Collaborative Research: A Risk-based Real-Options Approach for Infrastructure Systems Protection Investment

The objective of this project is to support research on mathematical conceptualization for planning and making infrastructure investment decisions based on real options and risk tradeoff. Protecting civil infrastructures against natural hazards is crucial to the welfare of communities. Such protections involve major capital expenditure and often take years to complete, but not taking actions comes with detrimental consequences in the forms of economic loss, physical damage, casualties, and population displacement. There are difficult tradeoffs between taking early action when uncertainty is high and deferring them to a later point in time when uncertainty is low. While popular in finance, options theory has been utilized at only a basic level in civil engineering applications, typically focusing on a single element, ignoring system effects and uncertainty sources, risk tradeoffs, and assuming risk neutrality. This project seeks to contribute to fundamentally changing the framing of the underlying protective investment decision problem and advancing needed mathematics and algorithms to achieve this objective.

The project involves four key research thrusts designed around: (1) advancing real option analysis methods under multiple uncertainty sources; (2) risk trade-offs and risk behavior modeling; (3) network-wide impacts and interacting options; and (4) machine learning approaches for information-rich environments. This research looks to build on concepts from optimal stopping theory, the Black-Scholes model, chance-constrained stochastic integer programming via p-efficiency, approximate dynamic programming, partially observable Markov decision processes, deep reinforcement learning, multi-agent extensions, and more. “Learn-to” algorithmic approaches that embed machine learning within optimization algorithms for speed-up, and explainable artificial intelligence for actionable protocols plan to be developed. Educational and outreach activities include educational modules/mini-videos; presentations to decision-makers; input from local decision makers; involvement of undergraduate students and cross-university events and courses.